Modeling Complex Supercritical Fluids

This project is aimed at developing new predictive models for the thermodynamic properties of complex supercritical fluid systems. Lattice-gas models are developed for systems in which multiple fluid phases are formed. The effects of polar and hydrogen-bonding solvents and solutes are modeled by the use of orientationally asymmetric interaction energies. New methods are used to compute the models' properties and to account for the far-reaching effects of the critical anomalies in these systems. These methods are based on mean-field renormalization techniques that will, for the first time, be extended to molecular models in which size and orientational effects are present. In this research, the PI identifies the sources of error in existing group-contribution models for mixture properties. Furthermore, the PI develops, using interaction-site potentials, rigorous group-interaction models for predicting the excess properties of aqueous solutions of hydrocarbons and organics when experimental data are unavailable. Monte Carlo and molecular dynamics simulations are used. Although the focus of this work is on mixtures at moderate pressures, the group-interaction models are also applicable at high pressures. In particular, they can be used to predict significant physical properties, such as limiting infinite dilution activity coefficients. In the research, these "data" are used to determine the parameters in the lattice-gas models, thereby yielding predictive methods for complex supercritical fluid systems.